Plastic Deformation of Deep Mantle Minerals

9506581 Karato The PI will perform mechanical property experiments on minerals that exist in the transition zone and lower mantle of Earth, and analogues of those materials. He will study the strengths of lower mantle and transition zone minerals using their relative strengths as generated from the non-hydrostatic stress state in high pressure apparatus, and from a further study of analogue materials that have similar structures to the real minerals at lower pressures. He will also investigate the effects of grain size reduction on rheology with application to grain fining due to phase transitions within slabs at depth in the Earth. ****